SCI: CyberInfrastructure for Science & Engineering

"This agreement with Purdue University recognizes the important role the Awardee will play in building, delivering and supporting cyberinfrastructure to meet the needs of the science and engineering research and education community."